Mathematical Sciences: Topics in Multivariate Survival Analysis and Counting Processes

The project concerns three topics: (1) Concepts of dependence and asymmetry of multivariate distributions and product integrals: we consider a class of tests for exchangeability of multivariate random vectors subject to censoring. The tests are based on symmetrized hazard functions and derive their form from the product integral representation of multivariate survival functions in neighborhoods contiguous to the hypothesis of exchangeability. The aim of the project is to develop asymptotic properties of these tests. (2) Resampling methods in estimation and prediction from Markov renewal processes: we examine two different resampling methods in estimation of the renewal matrix from a censored Markov renewal process and apply them towards setting confidence and prediction intervals. (3) L-estimation in the accelerated failure time model: we develop an extension of L-estimates in a semiparametric linear regression model with censored and truncated data. The aim of the project is to develop new inference methods in models designed for statistical analysis of data arising in application to areas such as medicine, econometrics and astronomy. Three interrelated topics will be considered and will deal with testing hypotheses, estimation and prediction based on incomplete data.